Manifolds and C*-Algebraic Index Theory

DMS-0103647
Johathan M. Rosenberg

Professor Jonathan Rosenberg will study the topology and
geometry of manifolds and manifold-like spaces, as well as
C*-algebraic index theory. By this we mean a combination
of C*-algebra theory, index theory of elliptic operators,
K-theory, geometry, and topology. One main focus of the
proposal will be the use of invariants coming from C*-algebras (especially Kasparov's KK-theory) to study the geometry and
topology of manifolds. For example, KK-classes coming from the classical elliptic operators (the Euler characteristic
operator, the signature operator, and the Dolbeault operator)
will be intensively studied. Attention will also be paid to the equivariant case, where a finite group acts on the manifold in question. These studies will deepen the link between
topological and analytic approaches to manifold theory.
In addition, Professor Rosenberg will study the classification
of manifolds via their Yamabe invariants, and the
classification of metrics of positive scalar curvature,
problems which involve a quite subtle blend
of differential topology, differential geometry,
and analysis. He will also study the applications
of K-theory to the study of C*-algebras, and various
related problems on algebraic K-theory, especially on
algebras of operators or on algebras coming from
quantization of geometrical systems.

The context of this project is the use of new methods
in analysis, based on noncommutative operator algebras,
for attacking problems in geometry and topology. On the
one hand, these methods are useful as a new source
of tools for studying geometry, especially in high dimensions.
And on the other hand, the methods are motivated (and more
or less forced) by the quantization of classical physical
systems. The study of the scalar curvature properties of
manifolds is also motivated by problems in gravitation.
Professor Rosenberg will continue to train graduate
students in analysis, geometry, and topology, and will
also work toward integration of mathematical software
into the undergraduate mathematics curriculum.